Nucleation and Growth of Metastable Ternary Phases from Modulated Multilayer Thin Film Composites

The nucleation and growth of ternary phases from modulated multilayer thin film composites will be explored. The first priority will be to synthesize ternary tungsten and ternary niobium chalcogenide composites, then explore the low temperature reactions of these composites and generate low temperature phase diagrams. These composites will be synthesized by evaporation of the elements in an ultrahigh vacuum environment. The metastable, highly reactive and intimately mixed starting structure ensures short diffusion pathlengths and significant reactivity at low temperatures. After transfer to an inert atmosphere, the evolution of these composites will be studied as a function of temperature and time via differential scanning calorimetry, powder X-ray diffraction, scanning electron microscopy and microprobe analysis. The effects of layer thickness, registry, and deposition temperature upon the nucleation of compounds and the evolution of the composites will be explored. The goal is to identify methods of controlling the reaction of composites through initial deposition conditions and/or reaction parameters. The synthesis of new ternary compounds at low temperatures and the synthesis of new metastable materials will be the end products.